Acquisition of Major Research Instrumentation for an Experimental Parallel Computing Facility

9512210 Oden This proposal requests the acquisition of a mid-scale parallel computing system consisting of 32 to 64 processing elements with high bandwidth interprocessor communication to insure scalability into the teraflop regime. The system will have parallel I/O to a disk system of around 100 gigabytes capacity. The facility will provide for the development of new computational algorithms, new software tools and mathematical techniques which will have a broad impact across a multitude of scientific and engineering disciplines. The proposed facility supports broad research activities across a variety of disciplines in engineering and sciences, in such tasks parallel computing play an important role. These research activities span the entire spectrum of computational modeling, ranging from computational chemistry to engineering mechanics, and to astrophysics. ***